Groups and Singularities in Quantum Control and Nonlinear Design

0072415
Ramakrishna

The project aims to develop i) numerically inexpensive methods for state
preparation in quantum control; and ii) control laws for nonlinear systems
in the presence of singularities, and techniques for singular exterior
differential systems. Several extant and future technologies call for the
control of quantum systems - semiconductor heterostructures,
spectroscopy, atomic lasers, quantum information processing, control of
molecular dynamics, to name a few. Many of these problems can, after
judicious modeling and optimization, be recast as the problem of
preparing desired unitary generators, via an external control acting on a
quantum system. This leads quickly to the problem of path planning for
systems with drift on Lie groups, via controls that are constrained. Path
planning for systems with drift, with few and constrained inputs, has not
hitherto been studied. The only other alternatives for the control of
quantum systems are computationally expensive optimization, and
tracking which relies heavily on intuition. In this project the role of
intuition and optimization will be limited to reformulating a given physical
objective as state preparation for a quantum system. The latter problem
will be attacked by developing structured factorization of unitary matrices,
the structure being determined by the constraints. The resulting control
design will be compared with other techniques such as inversion and
optimal control. Applications to lasing without inversion, molecular
control, quantum computing and information will be then carried out.
Related issues, such as tractable descriptions of reachable sets of quantum
systems, will also be studied. The second part of the project stems from
the fact that the extant non-linear control schemes are rarely directly
applicable in singular situations such as a varying rank decoupling matrix
and a change in relative degree. Tools from singularity theory, the theory
of foliations, nonsmooth analysis and Lie groups will be developed to
address this problem. A key feature will be the use of differential forms
instead of vector fields for studying such issues. This should also have
payoffs for singular exterior differential systems. Applications to
techniques such as the method of intermediate integrals for partial
differential equations and equations that change type will be studied from
this vantage point. It is worth remarking that both components of the
project call for similar mathematics.

Successful completion of this project should yield benefits for several
current and future technologies. For instance, the fabrication of a quantum
computer calls for solutions to precisely the type of problems being
studied in the project. Similarly, obtaining a snapshot of chemical
reactions at the molecular level also requires the control of quantum
processes. Active control of quantum phenomena would also lead to the
control of chemical reactions via tuned lasers. This should enhance
product specificity in chemical reactions, thereby minimizing the presence
of products that are not desired. The control of quantum phenomena is still
in its infancy. The project aims to move it along further by linking it
concretely to traditional control theory. Conversely, the results of the
project should shed light on the control of macroworld systems. This will
also have benefits for traditional technologies such as robotics, consumer
electronics and electrical networks, since the underlying mathematics is
quite similar. From a didactic point of view, the project's contribution will
be to show to undergraduates and graduate students alike that advanced
mathematics is not an arid field, but is in fact a lively process with
palpable connections to real life situations. This should enhance the
likelihood of students, especially from under represented groups, to pursue
higher education in mathematics, science and technology.